Molecular Architecture of Light-Energy Transducing Systems

The primary objective of this proposal is to: (1) Complete the characterization of the process whereby the phycocyanobilin prosthetic group is attached to the alpha subunit of C-phycocyanin. Genetic evidence indicates that the products of genes cpcE and cpcF play a role in the addition of bilin to the alpha subunit apopolypeptide. We have expressed the two proteins encoded by these genes, CpcE and CpcF, in E. coli and are now in a position to examine the biochemical role of these proteins in the bilin attachment process. (2) Complete the characterization of bilin- bearing linker polypeptide associated with the major phycoerythrin of marine synechococcus sp. WH8020. No previous complete structure of bilin-bearing linker polypeptide has been elucidated. This information on the number, type and location of bilins attached to such linker polypeptides is central to the understanding of the pathways of energy transfer in the phycobilisome. %%% Cyanobacteria (blue-green algae) are a widely distributed group of bacteria which carry out oxygen-evolving photosynthesis similar to that characteristic of higher plants. Recently, marine unicellular cyanobacteria were discovered to contribute ten to twenty percent of the primary productivity in the oceans. The studies to be performed are directed at achieving a detailed understanding at the molecular level of the structure and biosynthesis of the photosynthetic apparatus in these organisms which are adapted for optimum utilization of the blue-green light which predominates below the surface of the open ocean.